Variation of Selmer Groups of Elliptic Curves

Elliptic curves are increasingly important not only in number theory
and arithmetic algebraic geometry, but also in cryptography and related
applications. Some of the most interesting and important open questions
about elliptic curves are the Birch and Swinnerton-Dyer conjecture and
other questions about ranks, Selmer groups, and L-functions. In this
project the investigator and his colleagues plan to study how the rank
of an elliptic curve varies in certain families of number fields,
especially the subfields of Iwasawa towers and the family of all
quadratic fields. The investigation will make use of many different
techniques, including algebraic, p-adic, and analytic tools.

Elliptic curves play a central role in many parts of mathematics
including its most applied areas. For example, elliptic curves are used
in algorithms to encrypt data for transmission, and for efficient
digital signatures. In its most basic form, an elliptic curve is a
special kind of polynomial equation in two variables. Historically
number theorists are interested in finding solutions of these equations
in which the variables take values which are either whole numbers, or
fractions. The rank of an elliptic curve is a basic invariant which
measures the size of the set of solutions. The investigator and his
coworkers study ranks of elliptic curves and their interrelations with
other mathematical objects and concepts. These questions are related to
the cryptographic applications of elliptic curves, which come about by
considering solutions in which the variables take values in finite
fields.